Biological Consequences of Increased Ultraviolet Radiation Associated with Antarctic Ozone Depletion

Increased fluxes of ultraviolet radiation (UVR) have recently occurred in Antarctica as a result of an annual seasonal depletion of stratospheric ozone. Karentz will conduct initial photobiological investigations for the evaluation of the impact of increased UVR exposures on Antarctic ecosystems. The mutagenic potential of incident UVR during and after the spring maximum of ozone depletion will be quantified using a plasmid vector and Escherichia coli B-galactosidase mutation screening. DNA repair capabilities of species will be evaluated by the method of unscheduled DNA synthesis, and UVR-tolerance characteristics will be assessed by observations of UVR dose-dependent responses of growth and photosynthesis. The data collected will provide information for the evaluation of the possible repercussions of UVR-initiated changes in the taxonomic structure of Antarctic communities relative to primary productivity and trophic-level interactions. This award is a Research Opportunities for Women award.